Machine Translation Summit

The Machine Translation Summit is the third international meeting for exchange of scientific, technological and user-oriented information on machine translation. It is being held for the first time in the U.S. where there is increasing research interest in the area. Further stimulation to the research area will be achieved by including partial support for student participation through scholarships. This meeting is jointly funded by the DARPA Speech and Language effort.